U.S.-Japan Cooperative Research: Amorphous Semiconductor, Multilayer Superlattices and Interfaces

This award will enable collaborative research between Professor Christopher Wronski of Pennsylvania State University and Professor M. Hirose of Hiroshima University, Japan. They will study amorphous silicon based materials with the following four areas of focus: 1) the fabrication of amorphous superlattices with sharp interfaces and low defect densities; 2) systematic material characterization; 3) modelling of amorphous semiconductor superlattice properties; and 4) materials design and device applications. The expertise and facilities brought together by this program will provide a powerful arsenal of techniques for establishing and understanding the synthesis of ultrathin multilayer semiconductor superlattices and unraveling the role of interfaces in these materials. Such understanding should promote application of these materials in a wide variety of solid state and optoelectric devices. The Center for Electronic Materials and Devices, Pennsylvania State University and the Research Center for Integrated Systems, Hiroshima University will provide complementary expertise and experimental capabilities to this project.